Computer Graphics in Undergraduate Engineering Education

Computer Graphics is a new discipline that has profoundly changed traditional approaches to Engineering Design. This project will present Computer Graphics as a new discipline in engineering curricula and as a significant new tool for Engineering Design and Drafting. The format of the project is a Seminar/Workshop with a group of 16 carefully selected participants during a three week period. It will include presentations, discussions, demonstrations and other forms of interaction between participants and faculty that are active in teaching and research in the area of Engineering and Computer Graphics. The project will attract, interest, and enlighten experienced and promising undergraduate instructors teaching Engineering Graphics who need motivation, background, and know-how to develop new Computer Graphics laboratories and to apply leading-edge technology to the teaching of modern, computer aided design and drafting (CADD)-based Engineering Graphics courses. It also promises to prepare participants for and to help them in their efforts to introduce new courses in Engineering Computer Graphics, and to motivate them to become self- reliant in making and publishing their own contributions to this field of Engineering Education. In addition to NSF support, participants will provide about 10% in travel costs, and the University is contributing an additional 15%.